Assessment of Requirements for a Database for Arabidopsis and Other Plant Genomes

There is widespread interest within the international scientific community in the mapping and eventual sequencing of the nuclear genome of Arabidopsis thaliana. Sufficient progress has been made in isolating specific genes, in the construction of an overlapping series of genomic clones, and in the identification of a saturating set of RFLPs, that we should now consider the organization of the data that can be expected to flow from this effort. Significant efforts in the mapping and partial sequencing of other plants. Part of the interest in Arabidopsis is in the expectation that fundamental discoveries made with this organism will be applicable to other species, especially those of commercial significance. In addition to establishing a database for the Arabidopsis genome, it is also important, therefore, to establish a system in which molecular information obtained among a variety of plants can be readily compared. An obstacle to such comparisons is the disparity in systems of notations for similar genes cloned from different plants. To assist in meeting these needs, the present project will: Assess the requirement for representation, storage and access of data suitable for the mapping and sequencing of Arabidopsis. Assess the requirement for representation, storage and access of data suitable for the interchange of molecular information between Arabidopsis research and that on other higher plants. Organize a commission for developing a common notation for plant genes. Collate information on current projects on the mapping and sequencing of Arabidopsis and other plant genomes throughout the world. The data would be circulated among interested agencies, with summaries published in the Plant Molecular Biology Reporter.